Applications of Modern Growth Theory

This project applies insights from the theory of growth that have developed over the last five years. The fundamental challenge taken up by this theory is to understand the role and determinants of technological change. Four suggestions for applying and developing the theory are proposed. The first considers the relative importance of physical capital accumulation and the training of scientific and engineering talent in determining the rate of growth. The second considers the issues raised by international trade in a model of growth, with emphasis on possible "brain drain" type flows of skilled individuals from less advanced to more advanced countries. The third considers the issue of whether the different growth experiences of different countries are determined largely by policy decisions or instead have a large element of chance. The fourth considers the unique role that military research may play in influencing the rate and direction of technological change, especially in the United States. It has been argued that the earlier (1950's-style) growth theory died when it failed to link up with empirically-oriented macroeconomists. The recent theoretical work may be saved a similar fate if the empirical study undertaken by this project enables the scientific investigation of fundamental policy questions about growth.